8th World Clean Air Congress and Exhibition; September 11-15, 1989; The Hague, Netherlands

This is an award to provide support for foreign travel to four persons who will participate in the 8th World Clean Air Congress and Exhibion that will be held in The Hague, Netherlands from September 11-15, 1989. The persons supported by this award are: Martin E. Rivers, Executive Vice President of the Air and Waste Management Association; John Thielke, the Association's President; Joseph Soporowski, U. S. Program Committee Chairman for the Conference; and Harold Englund, Editor of the Journal of the Association. Representation by the United States at this Congress is important, as an additional reflection of concern for global air quality and to assist in developing plans for support of research that addresses issues relating to Global Environmental Change.